Zero Field NMR of Liquid Crystals and Polycrystalline Solids

The objective of this three-year U.S.-Yugoslav cooperative research project in solid state physics between Metka Luzar of the Jozef Stefan Institute and Alexander Pines of the University of California at Berkeley is to study molecular ordering, dynamics, and structure of liquid crystals and crystalline solids using zero field nuclear magnetic resonance (NMR). The proposed experiments will further basic understanding of the fundamental properties of liquid crystals, which are important in the development of optical devices. Dr. Pines has developed new NMR techniques related to liquid crystal research and Dr. Luzar is expert in ferroelectric liquid crystal materials. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The award, except for funds for U.S. scientist travel, is made to the Yugoslav institution.